SedDB: An Online Information System for Sediment Geochemistry

This is a pilot project to build a new marine sediment geochemistry database (SedDB) that will provide new and novel access to data. SedDB will be modeled closely after the Petrological Database of Ocean Floof Basalts (PetDB). SedDB will feature an interactive and dynamaic user interface and a data analysis tool set for data visualization and analysis. A special emphasis will be placed on interoperability of SedDB with other emerging data and information systems. The pilot phase will initially focus on collecting all of the available data for the Equatorial Pacific and the MARGINS Subducion Factory focus sites associated withthe Izu-Bonin-Marianas and Central American arcs.